RUI: Carborane Chemistry

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry program provides continued support to research by Dr. Thomas P. Onak of the Chemistry Department, California State University at Los Angeles, concerning the chemistry of cage compounds of carbon and boron, called carboranes. The reactions that will be investigated are: (a) selective, progressive, cage opening with nucleophiles such as fluoride ion, amines, phosphine, and hydride ion; (b) the syntheses of new carboranes; (c) the syntheses of new substituted carboranes that exhibit different modes of bonding and structure; (d) the influence of a variety of attached groups on the mechanism of rearrangement of substituted carboranes; (e) equilibration studies involving isomeric substituted carboranes to assess cage stabilizing and destabilizing influences of various substituents; (f) a study of net front-side cage displacement reactions; (g) the examination and delineation of products from the reaction of diborane with nido carborane anions; (h) the applicaton of MP-NMR computational methods, including IGLO, GIAO, and FPT, for the comparison of predicted NMR structural assignments to experimental data. Carboranes form large molecular structures with unusual bonding and structural characteristics. Insight about the behavior of such clusters is potentially applicable to other large molecular structures, including those found in electronic materials. Attention will be paid to developing a theoretical framework for interpreting the experimental results. The work will be carried out primarily by undergraduate students